Characterization of DNA-Linked Nanoparticle Networks for Advanced Genetic Testing

Professor Joseph Wang of New Mexico State University is supported by the Analytical and Surface Chemistry Program to study nanoparticle-biopolymer assemblies for use as sensors. In particular, DNA hybridization events will be detected electrically on gold nanoparticles, with eventual applications in biodiagnostics and biodetection. New assays that couple multiple amplification pathways and an effective magnetic separation will allow for increased selectivity and sensitivity in the sensors. A new electrochemical coding technology will be developed for the simultaneous detection of multiple DNA targets. These projects will be combined on microfluidic device platforms.

The ability to miniaturize complex chemical functions to achieve lab-on-a-chip is a goal of nanotechnology. In addition, this work can be related to biowarfare detection and thus has implications for national security.